ER-Nuclear Signal Transduction and Protein Degradation

abstract- McCracken This applicant will investigate mechanisms involved in signalling between organelles, specifically the ER-nuclear signal tdrasduction pathway. This is a novel intercellular pathway that joins two topologically distince intracellular organelles. The Em1p receptor in the membrane of the ER functions as a senor of conditions in the ER and transduces this information to the nucleus to activate a specific subset of genes. This proposal will test the hypothesis that the ER-nuclear pathway serves to regulate ER-associated protein degeradation. This will be analyzed by studying mutants defective in this pathway and by analyzing the interaction of the ligand with the Emp1 receptor/kinase. %%% This project will investigate the mechansims of signalling between parts of the cell, specifically the endoplasmic reticulum and the nucleus. Results from this work will explain how a local signalling event alters the types of genes expressed. ***